A Workshop to Examine the Application of Scientific Drillingto the Solution of Antarctic Earth-Science Objectives

This grant is in support of a workshop to examine the application of scientific drilling to the solution of a wide array of earth science problems in the Antarctic. In the Antarctic, where 98 percent of the continent is encased in ice, the application of advanced technologies, such as drilling for stratigraphic, geophysical and glaciological objectives, will be an important addition to U.S. research capabilities. This effort is in response to recommendations by the National Academy of Sciences ("Antarctic Solid-Earth Sciences Research, A Guide for the Next Decade and Beyond," 1987). The workshop is planned for the spring of 1988 in Columbus, Ohio, and will bring together experts in all phases of ice/rock drilling for scientific objectives. The meeting is an important aspect of the Antarctic geoscience research program and will point to new directions for future research in this area.